Cycles, Residues & Global Problems in Geometry

Abstract

Proposal: DMS 9802054
Principal Investigators: H. B. Lawson, Jr. and M.-L. Michelsohn

This multi-part project is concerned with the study of cycles and
residues in geometry. One part concerns the groups of algebraic
cycles and cocycles on a projective variety X and aims to relate these
groups to the global structure of X. A theory of homology type for
algebraic varieties based on homotopy groups of cycle spaces has been
developed, and will be used to study concrete questions about
algebraic spaces. A second part of the proposal concerns cycles in
projective space, which have surprizing connections to fundamental
constructions in algebraic topology. Some of the resulting questions
concern spaces of real and quaternionic cycles related to
characteristic classes and representation theory. Others concern
cycles under the action of a finite group. Here the spaces have led
to new equivariant cohomology theories whose development and
application will be explored. A third area of investigation concerns
singular connections and characteristic currents, a generalization of
classical Chern-Weil theory which relate singularities of mappings to
characteristic forms in a canonical analytic way; applications and
developments of the theory include a new approach to Morse Theory. A
fourth area concerns calibrated cycles in geometry: special Lagrangian
cycles in Calabi-Yau manifolds, cycles related to existence of
p-Kaehler spaces, and cycles appearing in M-brane theory. This
project is also concerned with graduate student development,
especially interaction at the research level among graduate students.

This project concerns questions of global structure in geometry and
has several interrelated parts. The first aims at furthering our
understanding of the spaces which arise as solutions of systems of
algebraic equations (so called ``algebraic cycles''). These spaces
have a long history and play a central role in many areas of
mathematics, applied mathematics and physics. Breakthroughs over the
past ten years have given fresh insights into the subject and a richly
structured theory has emerged. The proposed research will forge new
links between algebra and geometry/topology, and lead towards settling
some important conjectures in the field. Another area of
investigation is concerned with relations between cycles and geometry
which arise from connections. Connections are fundamental in
mathematics, where they constitute differentiation laws, and in
physics, where they represent the fundamental forces of nature at the
classical level. The investigators have developed a theory of
singular connections which encompasses many previously unrelated
phenomena and has applications to several areas of geometry. This
project will continue this work with emphasis on applications. In
studying the least area problem one of the investigators developed a
theory of calibrated cycles which currently plays an important role in
physical theories. This new relationship has raised some important
questions and conjectures that will be studied.